Constraint-Based Analysis of Infinite-State Programs

9619808 The core technology used in this project is called "model checking," a term embracing a large family of automated analysis methods. To date, these methods have been primarily used in domains like VLSI and protocol verification, i.e., problems which possess an inherent finite-state structure. Model-checking has proved less useful for analyzing general, concurrent programs realized in software, where many basic properties are undecidable. The PIs are developing algorithms to help attack this problem, by combining a variety of techniques used in model-checking, program analysis, constraint-solving and graph theory. The resulting methods guarantee convergence by allowing false negatives; often, these conservative approximations are sufficient to prove the properties under investigation. To date, the tools developed in the project have automatically verified some classical infinite-state programs. Examples are (1) the well known Bakery Algorithm which handles fair mutual-exclusion between multiple processes; and (2) FIFO queuing via circular, N-place buffers, where N is not bounded a priori. The analysis tools proved relevant safety and liveness properties in a matter of seconds; the same properties usually take several hours for advanced students to prove by hand. The PIs are now developing strategies for scaling these results. Methods under investigation are (1) finding more precise approximation techniques, specifically for abstracting path relations as transitive closures of infinite programs; (2) developing compositional strategies to help conquer state-explosion due to concurrency; and (3) unifying the automatic tools with a "proof shell," to let the user combine automatic verification results into a higher-level, global proof structure. ***